NOVA Minutes

ScienCentral, Inc. is producing and distributing one two-minute television science story per week based on NOVA, the long-format PBS science series. Each segment will be produced using footage from the award-winning NOVA series as well as original and archival footage. They will be distributed by ABC News to its 200+ local affiliates for their use in their newscasts that run throughout the day. NOVA Minutes also will be integrated into WGBH NOVA's extensive web and outreach materials.

All NOVA Minutes will contain the following:

A sentence stating: "As reported (or explored) by PBS NOVA"
A lower third notification of footage from PBS NOVA.
30 - 80 seconds of WGBH footage
30 or more seconds of non-WGBH footage
A PBS NOVA branded element with a graphic, animation, or video that is integral to the story.
Two versions, with/and without pre-recorded voice over (both have interview, natural sound)
A script with a list and cures for lower-third supertitle of names, institutions and footage sources for stations to use in their own graphic style. The script will include a line for the news anchor to read that states "Watch PBS NOVA for more information."
A catalogue number and ScienCentral copyright notice.